Calcium Research in Plants: A Workshop on Methods; January 8-11, 1989; Hawaii

Calcium plays an integral role in the metabolism, growth and development of plants and plant cells; however, our understanding of this important regulator has lagged behind similar insights in animal systems. A workshop will be organized to evaluate the methodologies commonly used to investigate calcium-mediated systems, responses and processes. This workshop will focus on the various approaches as they may be applied to plant tissues or cells and will consider the special problems which attend the study of calcium in plant cells. Thus, the principle objectives of the workshop are to expand the base of knowledge fundamental to the study of calcium in plants; to critically evaluate the currently available methods,; and to focus on the developing new technologies which may provide insight into the molecular mechanisms of calcium action in plants. This workshop will provide an opportunity for interaction between beginning and experienced investigators and will provide a forum for the critical evaluation of the methods available to investigate the role of calcium in plant cells. The exchange of information provided by this workshop should substantially enhance the knowledge base for future research directed toward understanding the role of calcium in plant metabolism, growth, and development.